Group Travel for U.S. Participants in the 23rd Annual Meeting of the Cognitive Science Society, Edinburgh, Scotland, August 1-4, 2001

This award will support international travel of younger US cognitive scientists to enable them to participate in the full scientific program of the 23rd Annual Meeting of the Cognitive Science Society, taking place August 1-4, 2001 in Edinburgh, Scotland, the first such meeting outside of North America. The participation of these younger (Ph.D. within the last six years) scientists, all of whose research is on topics within the purview of NSF, will allow them to forge connections with researchers in the international community. Thus, not only will collaborations be born that could not start in other fashions, but also the international visibility of these young US scientists will be enhanced.